PostDoctoral Research Fellowship

This award is made as part of the FY 2018 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Robert Fraser is "Harmonic Analysis and Geometric Measure Theory." The host institution for the fellowship is University of Edinburgh, Edinburgh, Scotland, UK, and the sponsoring scientist is James Wright.